Out of This World

Absract

Soundprint Media in association with the Smithsonian National Air and Space Museum and RLPaul Productions, will produce a website, radio programs, and museum-based family events related to the 50th anniversary of the Space Program. Participants will experience uner-reported stories from the history of space science, beginning just before the 1957 launch of Sputnik and running until 1978 when the first six women joined the astronaut corp. The historical perspectives are primarily the contributions made by African Americans and women to the space program, and the space program's connection to the civil rights movment. The project would coincide with the opening in 2008 of a major NASM exhibition also called Out of This World. The project's audiences include adults, children and families underserved youth, including girls and African-Americans. This project's evaluator is Learning Experience Design.